Concentrations, Sources, and Air-to-Sea Transfer of Trace Elements in the Atmosphere over the North Pacific Ocean

The primary goal of the proposed research is to determine the concentrations of trace elements in atmospheric samples that were collected from the westerly wind field over the North Pacific Ocean during two cruises in 1986. Numerous aerosol and precipitation samples were collected during the two cruises, and this is the only extensive set of high-quality trace element samples from the region. The analysis of atmospheric samples that were collected from a network of aerosol sampling stations in the South Pacific will also be completed. Special emphasis will be placed on integrating the results of these analyses with data from prior complementary studies. Data interpretation will involve comparisons and contrasts among the trace element and mineral aerosol concentrations, sources, and fluxes in the North Pacific westerlies and in the three other surface-level wind regimes over the Pacific.